Cohomology Jumping Loci

This project explores from various angles the deep and
intricate connections between the topology and geometry
of a space, the algebraic structure of its fundamental
group, and the algebraic geometry of the associated
cohomology jumping loci. The study is done in a context
which abstracts two of the crucial features that make
the dictionary between topology and algebra work so
well for complements of hyperplane arrangements:
formality (which leads to the Tangent Cone Theorem,
relating the characteristic and resonance varieties), and
quasi-projectivity (which insures that the characteristic
varieties consist of possibly translated subtori). Together,
these two properties put strong constraints on the geometry
of the resonance varieties, leading to powerful obstructions
to finitely presented groups being realizable as fundamental
groups of smooth, (quasi-) projective complex varieties.
Recently, new connections have emerged, relating the cohomology
jumping loci of a space to the homological finiteness properties
of its free abelian covers, and thereby to the structure of the
Dwyer-Fried and Bieri-Neumann-Strebel-Renz invariants.
Generalizations of the classical jump loci---from rank one
local systems to the non-abelian setting, and from cohomology
rings to differential graded algebras---extend the scope of
the investigation, and broaden the range of its applicability.

The topological and group-theoretic methods utilized
in this project shed new light on the combinatorial and
geometric structure of objects occurring in a variety
of contexts, allowing for cross-pollination between
different fields, with ideas originating in a given area
being fruitfully applied in new settings. The theory of
cohomology jumping loci impacts the study of a wide
array of spaces and groups, including toric complexes
and moment-angle complexes; right-angled Artin and
Coxeter groups; real and complex quasi-toric manifolds;
Kaehler and quasi-Kaehler manifolds; Milnor fibrations
of hyperplane arrangements; as well as configuration
spaces and compactifications of moduli spaces.
The study of these objects, with their multiple
connections to the theory of singularities, graph
theory, and low-dimensional topology, provides a
rich interplay between algebra, topology, and
combinatorics, yielding applications to areas
ranging from topological robotics to theoretical
computer science. The investigation is being conducted
together with several collaborators, as well as graduate
and undergraduate students. Participation in intensive
research periods and workshops is meant to introduce a
new generation of students and young researchers to a
very active, interdisciplinary area of study.